Biogeography and Evolution of American Cottontails, Lagomorpha: Sylvilagus, From Morphology and Molecules, Emphasizing South and Mesoamerican Taxa

Cottontail rabbits are among the least studied mammal groups in the
Americas, falling in the crack between game and non-game species.
Accordingly, little remains known regarding even such fundamental
questions as: what species are present in particular areas, what are the
biological limits of cottontail species, etc. This can be encapsulated by
pointing out that a new species was described in 1992 from right outside
Washington DC! The investigators therefore propose to conduct genetic analyses
of cottontails in order to address their hypothesis that the biological
species diversity in cottontails is greater than what our current
understanding suggests.

The work is important in biological control. Myxoma virus, used to
control European rabbit populations, is naturally found in South American
cottontails, the focus of this proposal. We do not know, however, exactly
from what species of South American cottontail the virus was originally
found. Research into species limits may determine this in conjunction
with viral sequencing. In addition, the investigators are proposing to
involve students and investigators from the Latin American countries where
they will undertake the research. The outreach component will therefore
yield long-term productive research benefits to the United States and Latin America.